The Formulation of Policies for Electronic Commerce and Their Enforcement

Current research on electronic commerce focuses on means for secure and efficient mechanisms for payments, largely supported by cryptographic techniques. Such mechanisms are indeed necessary for e-commerce, but they are not sufficient. Commercial activities are not limited to simple exchange of funds and merchandise between a client and a vendor. They often consist of multi-step transactions, sometimes involving several participants, that need to be carried out in accordance to a certain policy. Such policies may be concerned with issues that do not lend themselves to purely cryptographic treatment, such as: preventing certificates from being duplicated; ensuring that credit card are used only for the specified transactions; guaranteeing that a payment for services is refundable under specified circumstances; securing the privacy and anonymity of clients; providing a degree of fault tolerance; and establishing access control. This project proposes a general mechanism that can be used to formulate and enforce a wide range of such policies for electronic commerce, in a unified, scalable, and easily deployable manner. The policy is to be stated explicitly, and be enforced by a distributed set of trusted generic controllers. This mechanism is based on the concept of ``Law-Governed interaction,'' developed under a current NSF grant.